Doctoral Dissertation Improvement Grant: Social Complexity and the Evolution of Sheep and Goat Pastoralism in Central Anatolia

Under the supervision of Dr. Richard H. Meadow, Benjamin Arbuckle will
collect and analyze archaeological data related to the
evolution of sheep and goat pastoralism in Central Anatolia. Continuing
preliminary work that he began in 2004, Arbuckle will join international
archaeological projects based at Ankara and Istanbul Universities in
order to collect and analyze animal bone remains from four sites in
Central Anatolia (South Central Turkey). The goal of this research is to
develop a detailed understanding of the organization and evolution of
sheep and goat pastoralism leading up to and during the appearance of
the first complex polities and early urban states in the region from
6000-2000 BC.

This research is significant because, although sheep and goat
pastoralism is one of the most important socio-economic formations in
the ancient and modern Middle East, little is known about how pastoral
systems were organized in Central Anatolia, how they evolved over time,
and how these systems were affected by and affected the development of
early urban states. As a result a major portion of the cultural system
in Central Anatolia and its role in socio-political evolution remains
poorly known. This project analyzes faunal remains from four sites in
the region, including Erbaba, Kosk Hoyuk, Guvercinkayasi, and Acemhoyuk,
each representing a different point in the sequence of cultural
evolution in the region from simple villages to urban centers.
Particular attention is focused on addressing questions concerning the
overall organization of the animal economy, when and to what extent
sheep and goat herds were utilized for products such as milk and wool,
and when and to what degree sheep and goat herding became a specialized
occupation. The extent to which products such as milk and wool were
utilized is important for understanding the productive potential of
ancient herds and therefore their economic, social, and political
importance. Evidence for specialization in pastoral production and in
the distribution of pastoral products will provide a means to identify
aspects of the internal organization of early societies in Central
Anatolia that may not be available from other lines of evidence, as well
as the opportunity to test assumptions concerning the centralized and
redistributive nature of the urban Bronze Age economy.

Ultimately, this research will contribute to a new understanding of the
origins and development of pastoral practices that continue to be
important in the region today. By characterizing the nature of the sheep
and goat pastoral system and by addressing questions concerning the
relationship between specialization in the pastoral economy and emerging
social complexity, this research also makes an important contribution to
understanding the organization and evolution of early complex polities
in Central Anatolia. Furthermore, this project has been conducted in
close cooperation with Turkish and other foreign researchers, and the
results of this research will be disseminated to the scientific
community through collaborative publications in scientific journals in
both English and Turkish. Finally, this research has given the author
the opportunity to gain valuable experience in the methods of
zooarchaeological and archaeological research and has introduced faunal
research to several important Turkish excavation projects.